Formal Protection Modeling of Computer Security in Parallel and Distributed Systems

This project involves continued research in security of distributed systems and development of a formal protection model called the Distributed Model (D-Model). The D-Model defines concurrency conditions which guarantee that a concurrent system cannot reach a state in which privileges are configured in a non-secure manner. This work will extend the D-Model to include the security correctness criteria of trusted subjects. So far the D-Model conditions have been used to construct a distributed version of the Bell-LaPadula security model. There are more applications of the D-Model within this project, such as the Clark-Wilson Model, Minsky's transfer of privilege model, and the Military Message System Model (MMS) of Landwehr. The second phase of the formal modeling part of this project will develop a so-called General Purpose Distributed Security Model (GPDSM). The result of this model will be a set of security models that can be used to depict all computer systems within the state-of- the-art. The GPDSM must be formalized in the first step. After the formalization, any model (e.g. the D-Model, MMS and Non-interference models) can be implemented in GPDSM. Since synchronization is an important issue for constraining concurrency in distributed and parallel systems, the D-Model will be ported to a non-interference model framework (which is the GPDSM) in order to find a solution for non-interference synchronization problem. The D-Model has currently no associated covert channel analysis tool. The proposed GPDSM will also serve as both a model and a covert channel analysis tool.